Role of Atomic-Scale Crack Blunting on the Ductile Versus Brittle Response of Metals

0000142
This research project addresses crack blunting and
concomitant defect generation at the atomic length scale,
processes that profoundly impact the macroscopic
mechanical response of structural metals and alloys. The
performance and reliability of high strength steels,
aluminum alloys, etc., are compromised when subject to
adverse conditions such as low temperature, stress, and/or
harsh chemical environments. The scope of this project
goes beyond traditional continuum-mechanical treatments,
in that it attempts to appropriately model material behavior
at the various length scales from macroscopic to atomistic,
while self-consistently bridging the various theories. One
advantage of the approach taken is that linear elastic
fracture mechanics, as well as the stress singularities and
empirical fracture criteria associated therewith, are
discarded in favor of physically-motivated criteria imposed
at the near-atomic length scale. Specifically, this effort will
probe: 1) the phenomenon of "brittle" crack growth in the
presence of pre-existing, apparently mobile, dislocations; 2)
the role of nanoscale blunting of a sharp crack propagating
through a dislocation-free zone, embedded in a plastically
deforming medium; and 3) the mechanics of twinning and
complex stacking fault formation. The results are expected
to improve our understanding of the brittle-to-ductile
transition and to yield practical methods for reducing the
likelihood of brittle failure of structural metallic alloys.

The specific systems to be considered in this research
include aluminum and high strength steels, with a strong
focus on aerospace applications (e.g., cracking scenarios in
aging aircraft, and the extreme temperature and chemical
environments associated with turbine and rocket
powerplants). In addition, a pilot program to explore the
use of micromachined fixtures ("MEMS" technology) to
test some of the concepts arising from this work, and/or to
measure key materials properties, will be undertaken.